Geomagnetic excursions in the Brunhes and late Matuyama Chrons and correlation to paleointensity data

Funds are provided for a magnetic paleointensity study of sediments from one ODP site in the Atlantic Ocean (and compared to a second site for which a detailed oxygen isotope stratigraphy has been established). For the off Bermuda core this oxygen isotope stratigraphy is mainly be based on benthic foraminifera, whereas for the site from the northern most North Atlantic (to be studied in detail here) stratigraphy will come from planktonic foraminiferal oxygen-isotope data. Within the framework of these stratigraphies the PI will carry out a high-resolution study to identify geomagnetic excursions and paleointensity patterns. The study could advance this magnetic paleointensity technique substantially, and could add a new tool to the tool-kit for high resolution stratigraphy.